Research in the Foundations of Mathematics

Award: DMS-0245349
Principal Investigator: Harvey M. Friedman

Friedman proposes to continue his efforts into extending the
scope of the incompleteness phenomena. Under prior NSF support,
Friedman has discovered a new mathematical theory which seeks to
analyze the Boolean relations that hold between sets and their
images under functions of several variables. This new Boolean
relation theory seeks to analyze statements of the form "for all
functions of a certain kind, there exist sets of a certain kind,
such that a given Boolean relation holds among the sets and their
images under the functions". Under prior NSF support, Friedman
discovered a "singular" statement of a particularly simple form
in Boolean relation theory that can be proved only by going
beyond the usual axioms for mathematics. Friedman has considered
all 6561 statements of the same simple form and showed that all
can be proved or refuted using weak axioms, with the sole
exception (up to symmetry) of the "singular" statement. Friedman
proposes to develop Boolean relation theory in several
directions, including expanding the set of 6561 statements, and
shifting to many diverse mathematical contexts.

By the early part of the 20th century, the standard axioms and
rules of mathematics had been established - the so called Zermelo
Frankel axioms of set theory (ZFC). In the 1930's, Kurt Godel
stunned the mathematical world with his incompleteness theorems
that showed that any systematization such as ZFC is
incomplete. I.e., there will always remain sentences that can
neither be proved nor refuted within that systematization. This
is normally referred to as the incompleteness phenomenom. Godel's
original examples of statements of unprovable and unrefutable in
ZFC were very far removed from the usual considerations of
mathematicians. Through a series of developments, starting with
later work of Godel and Cohen, various specialists in set theory,
work of Friedman recognized by the NSF Alan T. Waterman Award in
1984, and more recent work of Friedman, a body of such examples
has been built up that are of increasing relevance to normal
mathematical considerations. Recent work of Friedman along these
lines gives new reasons for rethinking and extending the usual
ZFC axioms for mathematics. To test the broader impact of the
research, Friedman actively seeks and obtains regular feedback on
the "naturalness" and "normality" of the various examples from
the wider mathematical community. Friedman seeks to widen this
broader impact.